EPWG: Geology In A Social and Historical Context: Preforming Earth Science Education

9555721 Rees This project is designed to transform both earth science courses and pedagogy for the teaching of the social science of geolog" will be developed and implemented. The new courses and pedagogy will help to reform the earth science courses, teaching methods, and the classroom environment to make science inviting for traditionally marginalized students, particularly women; place the study of earth systems in a social and historical context; examine the race, class, and gender dynamics that shape scientific knowledge; illuminate the relationship between science, politics, and social policy; develop truly interdisciplinary social science of geology courses by incorporating the knowledge of the natural and social sciences. The goals of the reformed curricula and pedagogy are to (1) attract and retain underrepresented groups m earth science programs, (2) place the study of earth systems in a social and historical context from high school through university, (3) enhance both educators' and students' understanding( of natural and social systems and their inter-relatedness and (4) increase social and scientific literacy. New resources will be incorporated into newly created thematic modules that will illuminate natural and social systems and their inter-relatedness; examine the race, class, and gender dimensions of scientific inquiry and knowledge; and stimulate students to apply their personal knowledge of the natural and social sciences to local and environmental issues and policy making endeavors. The modules will contain pedagogical recommendations and suggestions; suggested readings, laboratory exercises, community-based activities, and field-trip localities; and extensive resource guides. In order to recruit and retain more women to science disciplines, new classroom resources and teaching methods should be used. This project will enhance the teaching of earth sciences by looking at the interelatedness of nature and society and at the ways science is rel evant to the lives of a diverse student population. Teaching materials and plans will help high school, community college, and university faculty improve the content of their courses. ***